Charge Transfer and Energy Transfer in Transmission of Low Energy (<10eV) Ions Through Surfaces

This research project, in the laboratory of Professor Ted Madey at Rutgers University, addresses questions of the energy transfer and charge exchange in the interaction of very low energy ions with various surfaces. Support is provided by the Analytical and Surface Chemistry Program to probe the interaction of low energy atomic and molecular ions with overlayers of inert gases, thin film metals and oxides, and condensed molecular layers. Ions are formed at low energies by electron stimulated desorption, and the energy distribution and identity of emitted ions is probed as a function of overlayer composition and thickness. Experimental results will be compared with calculations which simulate these processes. This information is basic to our understanding of many ion based surface analysis techniques, as well as the dynamics of radiation chemistry and low energy plasma processing of materials. The interaction of low energy ions with surfaces is crucial in the application of analytical methods using ion probes of surface structure and composition, as well as in the interaction of low energy ions in materials processing and in radiation chemistry. This research project explores the detailed mechanism of the interaction of low energy ions with a variety of surfaces, with the goal of obtaining a molecular level understanding of these mechanisms. Detailed experimental measurements will be coupled with calculational studies of these processes.